Corporate Financial Structure and the Theory of the Firm

This project continues the principal investigator's work on contracting and control issues in firms and corporations. Its aim is to gain a better understanding of several critical unanswered questions: (1) What determines the structure of securities in corporations and the allocation of voting rights across these securities? For example, why do shareholders typically have votes, while bondholders do not except when a firm is in financial distress? (2) How do friendly mergers and hostile takeovers differ as mechanisms for achieving changes in corporate control? (3) What determines the nature and extent of a firm? Still other questions must be addressed before a full-blown theory of the firm can be achieved. But that prospect, and the successes to date, provide a powerful spur for persisting on the present course.